I/UCRC: Center for NDE Renewal

The Industry/University Cooperative Research Center (I/UCRC) for Nondestructive Evaluation (NDE) at Iowa State University was originally formed with the objectives of pursuing research in NDE problems of interest to industrial sponsors; increasing the base of students with expertise in NDE engineering; and establishing a focal point for NDE technology transfer. In response to the changing needs of society, these have been significantly extended to address new issues of system integration and other societal measurement needs. The new goals include enabling the integration of NDE with manufacturing and life-cycle planning of modern structural systems, leading the international development of advanced NDE capabilities, and applying core measurement expertise to nonstructural material applications.